NSF East Asia and Pacific Summer Institute for FY 2012 in Japan

This action funds HUI-YIING CHANG of Vanderbilt University to conduct a research project, entitled "The Integrated Sachs-Wolfe Effect in the Viscous Dark Fluid and the Inflection Point Quintessence Models of the Universe," during the summer of 2012 at the Institute for the Physics and Mathematics of the Universe at The University of Tokyo in Kashiwa, Japan. The host scientist is Dr. Shinji Mukohyama.

The Intellectual Merit of the research project is the disclosure of more information about dark energy, possibly the greatest mystery in physics today. There is also room for more discovery concerning the Integrated Sachs-Wolfe Effect as well as the Viscous Dark Fluid and the Inflection Point Quintessence Models of the Universe.

The Broader Impacts of an EAPSI fellowship include providing the Fellow a first-hand research experience outside the U.S.; an introduction to the science, science policy, and scientific infrastructure of the respective location; and an orientation to the society, culture and language. These activities meet the NSF goal to educate for international collaborations early in the career of its scientists, engineers, and educators, thus ensuring a globally aware U.S. scientific workforce.